Biophotonics: Multi-Modal Miniature Microscopes for Detection of Pre-Cancer

0086736
Descour
The goal of this interdisciplinary research project is to develop miniature microscopes that can utilize the interaction of light with tissues in many modalities to image morphology and cytochemistry in vivo, yielding tools that provide better delineation of tumors. The investigators envision pen-sized, battery-powered multi-modal miniature microscopes (4Ms) designed to specifically image microscopic and molecular features of pre-cancer. The proposed miniature microscopes are being called multi-modal because of their potential for enabling different imaging modalities such as optical sectioning, 3-D spectral fluorescence imaging, and reflectance imaging. The size and cost of these microscopes will be small enough so that they can be used for wide-scale screening of disease. These tools will have broad applicability in many organ sites due to their very compact size and capability for imaging. The investigators will first apply these tools to improve detection of oral-cavity pre-cancers because of the oral cavity's easy accessibility. Furthermore, the assembled multidisciplinary expertise empowers the investigators to treat the design of miniaturized imaging sensors in an all-inclusive manner. In addition to developing 4M devices, the investigators will also design contrast agents specific for molecular alterations associated with pre-cancer that can be applied topically to significantly expand the imaging capability of miniature microscopes.